Neighborhood Interactions and Territory Size in the Fire Ant

Animal Behavior Program
Nontechnical Abstract

Proposal #: 9874451
PI: Eldridge S. Adams
Title: "Neighborhood interactions and territory size in the fire ant"

For many animals, the defense of foraging territories serves as an
important mechanism of population regulation. Models of territory size can
help to understand the population ecology of these species by predicting
how the partitioning of territories changes in response to variation in
food supply or competitive environment. A recent model predicts territory
sizes and shapes for contiguous neighbors as a result of competitive
interactions at territory boundaries. This research tests and extends this
model through a series of field experiments on colonies of the fire ant
Solenopsis invicta. Methods will include manipulations of colony sizes and
competitive neighborhoods, controlled supplements of food density in local
patches and across pairs of territories, standardized measurements of
aggression, and game theoretical models of territory interactions.

This work will develop a general approach to the study of territoriality,
and other interactions, for which the spatial outcome of one individual's
actions depend on the decisions and reactions of multiple neighbors. This
approach can be applied to a wide variety of habitats and animals,
including both vertebrates and invertebrates. A specific model will be
developed and tested for the fire ant. This information will be used to
improve prediction of population dynamics for this important insect pest.